Landslides: Analysis and Control

The goal of this project is to update and rewrite the Transportation Research Board Special Report 176: Landslides-Analysis and Control, initially published in 1978. This publication has already achieved an excellent reputation worldwide as a highway design text, and a repected reference for academics, researchers and practitioners. The intent of this project is to include in the manuscript the significant changes and advances that have been made in methods of field investigation and instrumentation, slope stability analysis, and design and construction of soil slopes during the past ten years.